ISSTA 2015 Student Travel (International Symposium on Software Testing and Analysis)

This grant supports university students to travel to the International Symposium on Software Testing and Analysis (ISSTA 2015) which will take place in Baltimore, Maryland in mid-July, 2015. ISSTA is a top conference in this research area, which is a key area of Software Engineering. In the selection process, due consideration will be given to underrepresented groups. The funding is important for students advance their research careers and to the nation's priorities in science and engineering.